Support for the 16th North American Catalysis Society Meeting, May 30 - June 4, 1999, Boston, Massachusetts

Proposal No.: CTS-9902424
PI: Israel E. Wachs
Institution: Lehigh University
Title: Support for the 16th North American Catalysis Society Meeting

ABSTRACT

This grant will partially cover the cost of the 16th Meeting of the North American Catalysis Society (NACS), to be held on May 30 through June 4, 1999, in Boston, Massachusetts. It will finance portion of the travel expenses for young investigators and graduate students. It will also assist financing a poster session and organizational expenses. This NACS meeting will promote high-level discussion among national and international colleagues and students, and university-industry partnership.